Color-Race Categories and "Racial" Discrimination in Brazil

This project supports the collaborative research of a U.S. anthropologist and a Brazilian colleague. They will study how the presentation of two different sets of Brazilian "racial" terms during census interviews affects the percentage of Brazilians who identify themselves as "non-white". They hypothesize that changing the term that the Brazilian census uses to identify people as "mixed" (not White or Black) will change the proportion of people self-identifying as "white", and that this change will be affected by socio-economic status. A split census of a small town in Bahia, Brazil will be carried out as a test. Controlling for socio-economic status, half the respondents will be offered each choice. This research is important because Brazil has a complex racial culture, in which discrimination against degree of Blackness is moderated by fluidity in "racial" categories affected by physical and socio-economic factors. Understanding the sources of discrimination in a society like Brazil can help planners in a binary "racial" society such as the U.S. moderate the effects of racism.